California Environmental Legacy Project

ABSTRACT
This project seeks to increase science literacy with regard to environmental change. Deliverables include 1) a two-hour public television program (Reinventing California) intended for public television broadcast; 2) five Place-Based Programs located at state and national parks in California; 3) an online educational portal with open source podcast videos and other resources for downloading and use in multiple settings. Intended audiences include California public television viewers, visitors to California state and national parks, and users on line educational resources. The secondary professional audience includes park interpretive staff, scientists, teachers, and media professionals. STEM content includes geology, evolution of species, biodiversity, and climate change. Through strategic partnerships with universities, government agencies, and public television this three year project is creating a new model that builds capacity, and impacts audiences in new ways. The project evaluation and research conducted by the Institute for Learning Innovation will look at how using media which provides an overarching sense of place within the environment can be integrated with place-based programs that add a personal scale to understanding environmental change.